Workshop on Research Needs in Electronic Cooling, June 4-6, 1986, Boston Massachusetts

The capability to cool high heat flux intensity components is the go no-go gate for the next generation of electronic computers. This workshop is structured to provide both a picture of the present state of the art and to set forth the projected cooling needs of future generations of computers. Representatives of all the major computer manufacturers will be in attendance as will the university researchers active in the field. In addition, young university researchers who are potential contributors will also be present. The workshop will set the stage for the major thrust in thermal engineering for the remainder of the decade.